The Geographic Foundation for Agenda 21

As a component of the State Department's contribution to the World Summit in
Johannesburg (September 2002), this study will examine the geographic foundation for
natural resource management and development issues in Africa. Specific examples will
be drawn from case-study regions where USAID and other agencies have broad
experience. Centered on a place-based, integrative framework, the study will draw on
experiences of U.S. government agencies, international groups, decision-makers, and
experts to examine 1) existing remote-sensing and GIS efforts in case-study regions, and
lessons learned from those efforts, 2) existing levels of local expertise and technology,
and ongoing efforts in geospatial capacity building, 3) a range of questions relating to the
practical application of new and existing spatial data (e.g. required resolution, challenges
of integrating layers of environmental and social data, and baseline data against which
future change can be measured); 4) the role of decision support systems in the application
of these data; and 5) options for making efforts sustainable beyond 2002.